Design of Experiments and Canonical Moments

DMS 9626784 Studden This research is composed of two related parts: one part deals with the design of experiments and the other deals with canonical moments in Statistics and Probability. The research in the design area involves the analysis of complex computer codes, the use of rational functions in regression theory and the analysis of rigid designs. Complex computer codes are analysed asympotically in order to optimally choose input values to use for further prediction purposes. The theory involves the use of stochastic processes, multidimensional interpolation theory and approximation theory. The second part involves the use of normalized moments of distributions on the real line called canonical moments. These have been used successfully in designing experiments in one dimensional polynomial regression. The present study investigates some unanswered questions in moment theory and random walks. Experimental design problems in general involve how to choose which experiments to conduct to obtain maximal information at minimal cost.The present research involves the analysis of complex computer codes where the problem is to decide on optimal input values to predict the outcome at other possible input values. This relates significantly to high performance computing which is one of NSF's current strategic areas.